Tools for Tutorial Conversation: Improving Science Education through Heuristic Simulation Tutors

The focus of this project is building a mechanism for managing intelligent tutoring discourse and on automating the process of transferring such knowledge from teachers to the tutoring system. The first research area focuses on problems of dialogue management for science education and implements a discourse framework-a virtual machine-that enables tutoring feedback in the form of examples, analogies, and simulations within interactive simulations. The virtual machine is being implemented within simulations that allow a student to test his/her hypothesis about domains such as physics and astronomy, specifically statics dynamics, and celestial mechanics. The second component of this work is automation-the process of transferring knowledge from experts, such as teachers, psychologists, and curriculum developers, to the intelligent tutors. The project seeks to build programming-free tools for representing tutoring strategies, domain knowledge, and intervention tactics. These tools are designed to assist teachers in visualizing their science knowledge in a form amenable to Artificial Intelligence systems and in encoding this knowledge in the form of examples, analogies, or remediation techniques.